RUI: Parameterization of the Effect of Stratocumulus and Cumulus Spatial Inhomogeneities Upon Radiative Fluxes

The primary objective of this investigation is to develop radiative transfer codes of stratocumulus and cumulus cloudiness for climate models which are accurate in the solar spectrum to within 10 W m-2. While the infrared spectrum also is important, the emphasis in this investigation is on the solar spectrum. There are three components to this study: 1) A more thorough analysis of 3D cloud field structure and microphysics. For stratocumulus, the FIRE IFO database, as well as other sources, will be utilized. The recent North Dakota (1987 and upcoming FAME, Hailswath II, COPS, and Hawaii Rainband data will be used for the cumulus studies. 2) On the basis of aircraft microphysical observations and high spatial resolution satellite imagery to determine cloud 3D structure, advanced broken cloud radiative transfer models will be developed. The resulting radiative transfer predictions will be validated against satellite nadir radiance. 3) Parameterization of the broken cloud radiative fluxes in terms of plane-parallel values will be attempted. This work will lead to improved representation of clouds in climate models and thus enable more accurate treatment of cloud radiation interactions in climate change simulations.